Assignment and Allocation of Processors in Parallel Processing Systems

Job scheduling in a multiprocessing system can be broken down into two major components; the processor allocation problem which determines the number of processors that should be allocated to a particular job, and the processor assignment problem which determines the physical assignment of the allocated processor to the parallel tasks in a job. this research will study these two issues based on analytical models, simulation and experiments on some existing multiprocessing systems. the research thus involves finding a suitable characterization of jobs based on which the processor allocation problem can be formulated, identifying the appropriate performance indices and obtaining the allocation strategies that will optimize these indices, formulating the processor assignment problem considering both precedence relations and the communication among tasks into account, developing heuristic algorithms to generate assignment which will minimize the job execution time, and performing experiments on real multiprocessing systems to determine the applicability of the allocation and assignment strategies and to study their effect on the performance of the multiprocessing system.